Gaalee'ya STEM Project

Global climate changes are affecting subarctic and arctic ecosystems and peoples more
significantly than anywhere else on the globe. Rural Alaska Natives who subsist in these
ecosystems naturally have close ties to the land and are deeply involved in science-based
research and land management through tribal organizations, governmental, and research-
oriented institutions. To date, rural Alaska Natives have had limited access to quality STEM
education addressing their unique cultural and geographic needs and have, therefore, not been
engaged in helping to find solutions to these complex ecological issues. We sorely need their
input in this day of rapid change. The underlying philosophy behind the Interior-Aleutians (IAC)
and Chukchi Campus (CC) Gaalee’ya project is that integrating culture and place into all
aspects of their academic STEM experience will support the engagement, capacity, and
continuity (Jolly et al. 2004) of rural Alaska Native STEM students.
The Gaalee’ya STEM project will build a rigorous and culturally relevant STEM program
through the Associate’s level for students in the IAC and CC regions. Gaalee’ya STEM will
incorporate cultural values and perspectives and local interests in ecosystem changes with
scientific coursework, research, and analysis from a Western academic perspective while
allowing students to take courses by distance so that they may remain in their home
communities. Mathematics and science courses, which are delivered primarily via audio-
conference to rural students, will be enhanced through this project with culturally responsive
pedagogies, face-to-face learning intensives, academic tutoring, and increased contact with
STEM faculty. Students will also gain research experience through projects designed around
the theme of “ecology of place” to engage, educate, and retain rural Alaska Native students in
STEM degrees. Elders and STEM faculty will work together to support the students using an
integrative approach. Program objectives are built around gains in student participation,
persistence, grade point averages and graduations of rural Alaska Native students with a
replicable model for reaching underserved populations as a primary goal of evaluation.